Embryos-Coagulation Nucleation Mechanism and Its Applications to Chiral Separation

This research is concerned with studying nucleation phenomena in crystallation processes. The PI's have developed a new conceptual approach (Embryos Coagulation Secondary Nucleation) for understanding nucleation in these systems and have identified a very important problem to work on, involving chiral separations. The objective is to develop the basic knowledge required for developing processes that enable the crystallation of pure enantiomers from mixed chiral solutions. This would be a significant process advance with many potential applications in the pharameceutical industry.